Wave Enhanced Heat and Mass Transfer

Abstract - 9708925 Hsueh-Chia Chang Interfacial waves are known to play a major role in multi-phase heat and mass transfer. An important example is the efficiency of a refrigerator evaporator tube that operates in the two phase regime. Recent tests suggest that its efficiency is due to the presence of interfacial waves. Much experimental data exist with which to examine the gross effects of waves on transport rates but little data are available to probe the coupling between wave statistics and the transport. This work will be a balanced theoretical, numerical, and experimental study of the enhancing effects of such waves and will lead to a better understanding of gas/liquid and liquid/liquid flows.